Elementary, Secondary, and Informal Education: Core-Plus Mathematics Revision Project

This award supports a major revision of the Core Plus Mathematics Project (CPMP; marketed as Contemporary Mathematics in Context) student materials for high school mathematics, the development of more informative teacher materials, and the development of materials for parents and other community stakeholders in mathematics education. The revision of student and teacher materials will be based on studies of student achievement conducted over eight years; a large collection of suggestions from teachers who have used the materials in their classrooms; results from expert panels, including the U.S. Department of Education, the American Association for the Advancement of Science; recommendations in the Principals and Standards for School Mathematics and a special review by university mathematicians sponsored by the developers. The development is done by a team that includes teachers, mathematics education specialists, mathematicians and statisticians.